Robust Parameter Estimation in the Detection of Cardiac Arrhythmias

This research is concerned with improving the efficiency and robustness of parameter estimation schemes employed by implantable and portable devices for cardioversion and defibrillation. The goal of the research is to replace the ad-hoc estimation schemes used in present generation devices by robust estimators that produce optimal minimum variance estimates for a wide range of unknown error distributions, and which maintain close-to-optimal performance in the presence of parameter fluctuations. These objectives are pursued through estimation schemes that are based on the application of Order Statistic (OS) operations to the data.